Presidential Young Investigator Award

This PYI's research is associated with the optical properties of semiconductors. His principal activity has been in the area of light scattering and he was a pioneer in studying interference effects in Raman scattering. Some of his current research involves light scattering from semiconductor heterostructure interfaces. He is also collaborating with G. Maracas on the physics and engineering of brand offsets in strained-layer semiconductor heterojunctions. There is also a second collaboration with H. Hochst in the growth and characterization of amorphous tin-germanium alloys. The PYI award will allow this investigator to complete the installation of a sophisticated light scattering laboratory and to concentrate in opening new research areas.